U.S.-Germany Cooperative Research: Diffusion, Advection, Phase Changes and Interfaces

9910086
Nochetto
This award supports Ricardo Nochetto and three students from the University of Maryland in a collaboration with Gerhard Dzuik of the Department of Applied Mathematics at the University of Freiburg, Germany. The project will focus on error control for nonlinear partial differential equations via a posteriori error estimation. The techniques will have applications for physical problems involving diffusion, advection, phase changes, and interface dynamics. Such problems arise frequently in industrial applications, and raise fundamental and challenging questions that need to be addressed in order for the field to advance. The collaboration combines complementary expertise and facilities on both sides. In particular the innovative new software toolbox ALBERT, developed by the German group, is central to the proposed work, which will gain added value from the powerful theoretical capabilities of the U.S. group.